Neural Circuitry Mediating Steroid Hormone Effects on Behavior

Steroid hormones produced by the testes or ovaries act on vertebrate brains to influence a host of processes ranging from sexual behavior to non-reproductive functions such as feeding, drinking, learning and memory. Progress in unraveling the neural mechanisms that mediate these steroid influences has been made in only a few animal models. It is difficult to identify cellular mechanisms by which sex steroids influence functions such as male sexual and aggressive behaviors, which respond slowly to changes in gonadal hormone levels. Dr. Geert DeVries is studying dramatic changes in vasopressin pathways in the brain which have a similar time course to that found in the male sex behavior. Studying the nature of these changes and their relationship to hormonally dependent functions such as male sexual behavior will help to understand the neural basis of slow changes in behavior.